Creep and Creep Damage of Polymer Matrix Composites (PMS)

0001634
The objective of the research is to define and conduct experiments on thin walled polymer matrix composite (PMC) tubular specimens having continuous reinforcement fibers at methodology for the class of long or continuous fiber PMC. An anisotropic, damaging, non-linear viscoelasticity model proposed earlier by the principal investigators is used to represent the deformation and failure behavior of the PMC composites. The experiments are exploratory and designed to test fundamental features of the macro-mechanical constitutive model, particularly the representation of strong anisotropy, and to guide further theoretical development.